Synchronous VLSI Circuit Optimization via Integrated Retiming and Clock Skew Scheduling

This project is cooperative between the University of Michigan (Papaefthymiou) and the University of Rochester (Friedman). It is exploring electronic design automation methods for optimizing high performance, high complexity VLSI/ULSI circuits. The focus is on retiming and clock scheduling, two complementary circuit optimization strategies that have attracted significant attention. Retiming is an architectural-level transformation method that speeds up a synchronous digital design. Clock scheduling is a circuit-level optimization that increases the operating speed of a digital design. The approach is to merge these two methods into a single powerful optimization process that will handle comprehensive delay models. Problems being investigated are: (1) Finding enhanced circuit models that consider physical and electrical issues related to submicrometer technologies; (2)Developing a theoretical yet practical framework for simultaneous retiming and clock scheduling based on these physical & electrical models; (3) Designing and evaluating polynomial-time approximation algorithms for integrated retiming and clock scheduling. Software developed during the project is being widely distributed.